Integration of Automated GC-MS Into the Undergraduate Curriculum

This project obtains a robotic sample changer controlled GC/MS facility directed toward undergraduate education and student research courses. The robotic sample changer controlled GC/MS enables unattended data collection on student samples overnight and on weekends. The GC/MS is being networked to a series of existing data stations, allowing student data processing, analysis, and use in lecture courqes. The GC/MS results are being integrated with the results from other spectroscopic (especially multinuclear NMR) and crystallographic techniques. Laboratory studies in the sophomore through senior years emphasizes hands-on, research-based laboratory experiences. Mass spectra and GC data is being made available to other users via the Internet, in combination with NMR data for the same compound. Summer courses on advanced instrumentation operation and data analysis techniques are being offered to college faculty.